U.S.-Philippines Cooperative Research on the History of Explosive Volcanism and Volcaniclastic Sedimentation around Taal Caldera and Mt. Pinatubo, Philippines

This award provides funds to permit Dr. Stephen Self, Department of Geology and Geophysics, University of Hawaii, to pursue with Mr. Ronnie C. Torres and Dr. Raymundo S. Punongbayan, Philippine Institute of Volcanology and Seismology (PHILVOCS), for 24 months, a program of cooperative research on the history of explosive volcanism and volcaniclastic sedimentation around Taal Caldera and Mt. Pinatubo, Philippines. This project will define the stratigraphy and extent of the major volcaniclastic units and analyze their textures, facies, and depositional characteristics of the ignimbrites and related surge and lahar deposits. Combination of data from the reworked and primary deposits will allow interpretation of the history of explosive volcanism and catastrophic sedimentation, including pyroclastic flow-lahar transitions. This research will yield data pertinent to several unusual and important problems. A by- product of the information gained, and collaboration with PHILVOCS, will be an improved understanding of volcanic and related hazards for the Greater Manila region. Dr. Self has an excellent reputation for research in the field of this proposal. Mr. Torres is an intermediate level employee of PHILVOCS with several years of experience in studying volcanic phenomena in the Philippines. The proposed work will form the core of his dissertation research at the University of Hawaii. This project is relevant to the objectives of the Science in Developing Countries Program which seeks to increase the level of cooperation between U.S. and developing country scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual interest and benefit.